MRI: Development of Instrumentation for Lambda Vision

This project, supporting collaboration among co-located and remote experts requiring interactive ultra-high-resolution imagery, aims at developing a high-end visualization "LambdaVision" multipanel display as a means to advance both scientific research and public safety as validated by users in various disciplines and training exercises in disaster response. LambdaVision will target applications requiring extremely high data rates and very large, high-resolution images, such as earth surface imagery. Applications include scientific simulations and disaster response. Plans included the development of smaller versions for use in the classroom and in the field. The following research applications will use the system:
Geoscience Research ,The US Geological Survey, Integrated Ocean Drilling Program
US National Lacustrine Core Repository, Computer Science Research in Visualization, Advanced Networking Middleware, and Multi-User Collaboration ,Scalable Adaptive Graphics,Advanced Networking Middleware,Collaborative Methods for Display-Rich Environments
Research Instrumentation Development, LambdaVision and Lambda Table Architecture LambdaVision and Lambda Tabel Seamless Display Technology ,LambdaTable Tracking System

Broader Impact: PIs have a history of developing technology that domain scientists use. The work includes designing systems suitable for use in the field, classroom, and lab.